Near East Climate Variability from Tree-Rings

The Near East is currently poor in developed annual resolution proxy records of climate extending back into pre-industrial times. This award will fill this gap by establishing reconstructions of past climate in the region using tree rings. In order to do this, the principal investigators will: (1) develop new tree-ring chronologies for the region; (2) examine interrelationships and correlation among the chronologies; (3) study the effect of climate on tree-ring growth; and (4) develop tree-ring reconstructions of climate over the past several centuries for this region.